Penguin Science

This project will produce an educational 30-minute DVD/TV film and interactive website with classroom materials about climate change and its effects on biota by presenting past and current research on the Adelie penguin, Antarctica's most accessible indicator species. The project will target students in grades 5-8. Each component of "Penguin Science" will present an engaging case study to teach students about ecology, the complex science of climate change and its impacts, both positive and negative. It will not only feature the work of David Ainley and co-PI's Grant Ballard and Katie Dugger, but also William Sladen who began the first NSF-sponsored penguin studies 48 years ago during the International Geophysical Year (IGY). Archival film clips of Sladen and his work from the 1970 documentary, "Penguin City" (CBS), will convey the value of long-term research and show biotic changes during just one professional lifetime. The project will be completed in 2007 to coincide with the International Polar Year.